Algorithms for Simulating Flows with Elastic Components

This project considers the construction and analysis of algorithms to
simulate fluid systems containing elastic components. Polymers, such
as liquid crystals, are an important class of such fluids, and in this
instance the elastic properties of the molecules are usually
incorporated into a continuum model. Another example is blood flow
where the elasticity of the red blood cells gives rise to
non-Newtonian behavior. This problem was motivated by collaborative
work with engineers who wish to determine the distribution of and
damage to red blood cells in the small clearances within mechanical
heart assist devices. Since these clearances are of comparable
dimension to the cells, it is necessary to explicitly model the cells
at the micrometer scale in order to determine their distribution and
the stresses they experience. The mathematical structure of the
equations modeling viscoelastic polymers and blood are very similar,
and insight gained in one of them sheds light on the other.

The ability to simulate the flow of complex materials on a computer is
a key technology required for the design and development of many "next
generation" products, such as micro-mechanical devices, bio-materials,
and prosthetic organs. For example, a major mode of failure in
mechanical heart assist devices is the formation of clots (thrombosis)
which are primarily initiated by damage to the red blood cells. This
phenomena is difficult to control and the ability to simulate it on a
computer it would represent a breakthrough which would eliminate much
of the expensive and time consuming experimentation currently
required. The equations used to model such phenomena are complex and
poorly understood, and much of the research proposed herein is directed
to revealing the theoretical (mathematical) properties of these
models. This work complements the more practical approaches undertaken
in the engineering community and at the national laboratories.